SHINE: A Search to Identify the Relationship between Heliospheric and Solar Coronal Mass Ejection (CME) Signatures

Diverse data sets will be compared and contrasted in order to investigate how solar Coronal Mass Ejections (CMEs) evolve in transit between the sun and the earth. Preliminary results have found a possible relationship between flare-associated CMEs and observed enhanced abundances of different charge states of oxygen ions in the solar wind plasma. This finding will be extended through a statistical study comparing rates of occurrence of related heliospheric and solar phenomena. These objectives will be accomplished by taking observations of individual CMEs as they originate at the sun, and, by using velocity measurements, determining if ejected material is present at spacecraft at the expected arrival time. Events of this nature will be compared on a one-on-one basis to determine how individual features of CMEs in the solar corona and in the heliosphere are interrelated.